Astrometric Research at the Yale University Observatory

AST-9530474 Astrometric Research at the Yale University Observatory. This award is a companion to one that supports Dr. Van Altena's Southern Proper Motion Survey that is being carried out at Yale Southern Observatory facilities in Argentina. These funds cover the incidental costs incurred by the Southern Observatory personnel in New Haven during the course of their work on the survey. Expenses covered include travel, publication costs, materials and supplies, computer services, and PDS maintenance. =============================